Second International Symposium on Symmetries in Subatomic Physics; University of Washington, Seattle, Washington; June 25-28, 1997

The Symposium will provide an opportunity for senior researchers, postdoctoral research associates, and advanced students to hear and discuss recent experimental and theoretical work related to symmetries in atoms, nuclei, and particles. These symmetries often form the framework of the underlying theories of modern physics. Included will be space-time symmetries, gauge symmetries, chiral symmetries, and other ones that are playing an important role in the developments of subatomic physics.